Expanding the Information Web Through NSFNET/Internet Connections

9312354 Schwenz This project connects the west campus of the University of Northern Colorado to NSFNET. The connection is through the main campus of the University, which already reaches NSFNET through Colorado Supernet. Faculty and students at the west campus will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year. ***